Collaborative Research: A multiscale unified simulation environment for geoscientific applications

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The goal of our interdisciplinary eort between computational scientists, physicists, engineers and applied mathematicians is to build an all{scales unified simulation system that can exploit the next generation of petascale systems and beyond. The advances proposed herein hold the potential of greatly enhanc-ing possible breakthroughs in various research disciplines involved with continuum mechanics. Specifically, the novelties will include: high-order discontinuous Galerkin methods with simultaneous adaptive h-p unstructured non-conforming meshes, multi-methods for time integration including multirate, implicit-explicit(IMEX), strong-stability preserving (SSP), exponential integrators, Parareal time-integration, adjoint-based error estimates, and new optimal iterative solvers. These ideas will ultimately be targeted for use on a deep atmosphere and ocean model.